Research Experiences for Undergraduates in Chemistry at the University of Alabama

Professor Lowell Kispert and other members of the Chemistry Department of the University of Alabama are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, twelve (12) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from synthetic biochemistry to catalysis to study of thin films. The department will view the program as successful if students continue in research careers. A unique feature of this program is the involvement of high school teachers and students.